Mathematical Sciences: Group Representations

9600106 Dade This grant supports the research of Professor E. Dade to work on problems in the representation of the finite groups. In particular he wants to work on a conjecture about the number of characters in a block of a finite group. He will complete work on reducing this conjecture to the case of covering groups of the finite simple groups. He will then try to directly verify cases of this conjecture using this reduction. This is research in the field of group theory. Group theory can be thought of as the study of symmetry in the abstract. As such, this area has direct applications to many areas of physics and chemistry. Moreover, within the last 30 years, many connections to problems in data transmission have been solved using techniques from group theory. There are also direct connections to the error correcting codes that are vital for modern computing such as working with CD-ROM's.